Theoretical Nuclear Structure Physics

The nuclear theory program at Louisiana State University is focused on understanding the structure of atomic nuclei, from single-particle behavior that validates the use of mean-field techniques to many-particle phenomena that manifest themselves as collective rotations and vibrations in nuclei. Microscopic (shell model) and macroscopic (collective model) pictures are used to describe various phenomena. Algebraic methods that employ group theoretical techniques, and non-linear constructions that exploit coherent state theory (solitons), enter into studies of excitation spectra and electromagnetic transition rates, especially of strongly deformed nuclei. Agreement with data is the fundamental standard against which theories are tested. Successful theories are used to predict results in domains where measurements have not been made.